Equitable Computer Science for All Learning Ecosystems: Developing Underserved Students' Computational Making Literacies Through Community-Embedded Out of School Time Programming

At its core, the National Science Foundation's CSforAll initiative has the goal of creating the
infrastructure, pathways, and incentives that develop ecosystems for supporting and motivating all youth
to become computationally literate and pursue computer science-related degrees and careers. This
proposal makes a case for the extension of the CSforAll infrastructure to include the integration of out-of-school time (OST) learning projects into existing CSforAll funded grants by asking two questions: How
can we foster a community learning environment that recognizes, supports, and promotes computational
literacies as a desirable and accessible form of social capital by mentors, youth, and families? And how
do these community-level connections impact youth computational making learning opportunities,
participation, social networks, knowledge, and understanding? In Evanston, a partnership between
Northwestern University, the district, and the Evanston YMCA will work together to understand and answer these
questions by designing and operating a community-based computational making OST hub that provides
the learning activities and peer community needed to create an inviting and relevant environment for
students, caring adults, and educators to reorient their perception towards computer science-related
careers as desirable and achievable for youth in the community.

This proposal seeks to take advantage of a unique opportunity - the launch of a 1:1 middle grades tablet
initiative in a racially and socioeconomically diverse community actively engaged in addressing their
expanding achievement gap - to implement a community-based computational making OST hub and
reimagine how a community-embedded approach to OST designed to support youth and caring adults
(parents and mentors) can ignite youths' computational making participation. Specifically, this proposal
seeks to create a learning community that uses the computational thinking guided design process to
motivate and support students in the systemic creation of interactive objects that require the
integration of coding, digital fabrication, and visual design literacies to produce aesthetically powerful
and socially conscious solutions to student and community defined design challenges.